CAREER: Energy Scavenging for MEMS and Engineering Education Development

Micro-electro-mechanical systems (MEMS) have grown from scientific speculation to
commercial success. Still, a number of technical challenges remain which cannot be
addressed by the private sector. One of these challenges is the integration of the power
supply into the MEMS device. It is a further challenge to build the power source, using
only the processing technology that was used to build the micromechanical elements and
the electronic elements of the device. We address the technical issue of obtaining energy
from the environment to power MEMS devices, rather than powering the device through
external batteries or power supplies. Examples from horology provide inspiration for
scavenging both mechanical motion and thermal energy. While a number of energy
scavenging schemes based on capturing vibration have been proposed, we intend to take
advantage of the high potential energy densities of thermal systems. We will develop
scaling and design methods for thermally scavenged systems, and demonstrate a
mechanical micromachine actuated by changes in ambient temperature. This technology
may be used in the future development of autonomous microrobots or microsatellites.
A problem facing higher education and high technology industry is the dearth of students
and graduates. This is an especially acute problem for interdisciplinary fields such as
MEMS. Upper-division students require cross-disciplinary education to become skilled
contributors to MEMS research, and there are not enough upper-division students. We
therefore must attract more students into the technical fields. The NSF CAREER
program leverages on existing curriculum development efforts by turning curriculum
development into science/engineering outreach. Project-based courses will have their
final presentations in secondary schools, where high school students will have the
opportunity to evaluate engineering projects. Similarly, we will develop sections of
project-based engineering courses targeted for science teachers, with the objective of
integrating teachers into engineering development teams. New courses will be
modularized, so that topics can be offered as short courses or tutorials, and published
with distance education technology. NSF funding will enable students to actually
fabricate and test the designs their teams have designed and simulated through the NNUN
or other multi-user foundries.
The research results, and the research program needs, are intertwined with the
educational development. Research findings and educational assessments will be used to
revise and refine curriculum development and teaching methods. Similarly, project ideas
for the courses will be drawn from the research problems.
All of these efforts are leveraged through existing programs designed for outreach to
disadvantaged and underrepresented groups in the sciences at the University of New
Mexico and in New Mexico.